Special Functions

DMS-9970627
ABSTRACT

The proposed research is to study specific q-series and
integer partitions. In particular new forms of the Bailey
transform are found which imply new multivariable Rogers-Ramanujan
identities. These forms will be related to work in statistic
mechanics. They also motivate new quintic transformations
which imply the Rogers-Ramanujan identities without the Jacobi
triple product identity. The q-Hermite polynomials motivate this work,
and several related integrals remain to be evaluated and applied to number
theory. They suggest many avenues of study for combinatorial enumeration,
including the positivity conjectures of Andrews and Borwein.

Suppose we have a positive integer, for example 12. We now split 12
into a sum of possibly smaller positive integers, for example 12=5+2+2+2+1.
We always order the smaller integers from largest to smallest.
We call 5+2+2+2+1 an integer partition of 12. The total number of integer
partitions of a given integer is a number that mathematicians, physicists,
and chemists need to understand. Whenever particles of matter exhibit
symmetry,
this number can appear. In this research, several problems related to
integer partitions are considered. The basic technique of the
study is to consider certain functions instead of the
partitions themselves, and apply a higher version of calculus to these
functions.